Chlamydomonas Telomere Function: A Telomere Binding Protein and its Gene

Telomeres, the specialized structures at chromosome ends, are essential for the replication and maintenance of chromosomes. Telomeres are composed of highly repetitive DNA and proteins that interact with thtat DNA. The Chlamydomonas reinhardtii telomere repeat sequence, (T4AG3)n, conforms to the telomere repeat motif (TnAG3) where n=2 in vertebrates, n=3 in plants, and n=4 in Chlamydomonas. The telomere DNA from yeasts and ciliates has been studied extensively; it is very G-rich and, in vitro, the G-strand readily folds into G-G base paired DNA structures that are unusually stable. The C. reinhardtii telomere DNA is not G-rich, and, while the G-strand can fold into G-G base paired structures, these structures are not stable. Chlamydomonas is a unicellular model organism that can be sstudied using classical and molecular genetics and that has regular telomere repeat sequences. A protein, Chhlamydomonas G-strand telomere binding protein (CGTBP), that binds specifically to the C. reinhardtii G-strand telomere repeat sequence T4AG3 has been identified and a gene that encodes this activity has been cloned. The CGTBP gene will be sequenced and its deduced coding sequence will be compared to known protein sequences. CGTBP will be analyzed biochemically and the protein will be localized in the cell by immunomicroscopy. Transcript and/or protein accumulation will be monitored thtrough the cell cycle. The phenotypes of cells that have altered levels of CGTBP will be studied by transformation of Chlamydomonas cells with the CGTBP gene in the sense or antisense orientation under the control of regulated promoters. %%% In eukaryotic cells, the genetic information is encoded by DNA, which is packaged with associated proteins into structures called chromosomes. The chromosomes have highly specialized regions at their linear ends, called telomeres, which are essential for DNA replication, and may have additional functions in the cell cycle. These regions contain characteristic tandemly repeated DNA sequences and proteins which interact with those repeated sequences. Very little is known about these telomeric proteins. This project will provide a great deal of structural information about one such telomeric protein, and has the potential to provide information about its function also.